ROW: The Role of Browsers in Regulating Primary Production of Shrub-Grasslands

Large vertebrate herbivores are believed to play an important role in regulating primary production of terrestrial ecosystems. However, the specific form of their regulating influence and its mode of action have emerged as the focus of a significant, unresolved controversy in contemporary ecology. It has been observed that experimentally imposed increases in the population density of a large, generalist herbivore during winter can stimulate production of perennial grasses in shrub.grassland ecosystems during spring. It is hypothesized that this stimulation may result from (1) the effect of browsing on competitive interactions between shrubs and grass, (2) the effect of grazing on standing dead grasses and its consequences for availability of nitrogen and water and (3) fertilizing effects of urine and dung. Plot level experiments will be conducted to examine these mechanisms and seek support to plan those experiments. The investigator and her colleagues are well qualified and form an excellent team. The institutional environment is first. rate for the project as planned. Research results should be significant in the area of basic ecology of browsing and grazing as well as to the area of wildlife and forage management.